USA-JAPAN International Nano-Biotechnology Workshop

1406966(Di Carlo) This grant supports the international nano-biotechnology workshop held in Japan in December 2013. The field of nanotechnology is very promising and holds considerable potential for societal impact. Early career US academic scientists will have an opportunity to participate in a conference held in Japan. This conference will lead to exchange of ideas and will allow US scientists to bring home new ideas for projects. Such exchange of ideas will contribute to US innovation and development of new products that will be benefit USA.